2014 CRCNS PI Conference

The PIs and Co-PIs of grants supported through the NSF-NIH-ANR-BMBF-BSF Collaborative Research in Computational Neuroscience (CRCNS) program meet annually. This tenth meeting of CRCNS investigators brings together a broad spectrum of computational neuroscience researchers supported by the program, and includes poster presentations, talks, plenary lectures, and workshops. The meeting is scheduled for October 16-18, 2014 and is hosted by Arizona State University.